RIA: Investigation on the Implementation of Field Programmable Analog Array Chips

The research focusses on development of Field-programmable Analog Arrays (FPAA). The main objective is to search for generic analog arrays which can be used for realization of analog circuits and systems. Several configurable analog block styles with different granularities are considered to arrive at optimal configurable analog blocks. The research also includes considerations of architectural and interconnection issues.